The dynamics of surface diffeomorphisms

Proposal Number: DMS-0203975
PI: Andre de Carvalho

ABSTRACT

The study of 2-dimensional dynamical systems is an active area of
research. Families such as the Henon and Lozi families have been
intensively studied in recent years and many beautiful results
have been obtained. However, we are still far from having a
complete understanding of them. In dimension 1, due to the
efforts of many researchers during the past two decades, there is
an almost complete theory. Parallels and differences between the
dynamics of families in dimensions 1 and 2 have been exploited by
several authors. The past work of the PI includes the development
of a 2-dimensional analogue of Milnor and Thurston's kneading
theory and the study of braids and braid forcing. The present
project proposes to further the study of dynamics in dimension 2
as well as some aspects of braid theory and Teichmuller theory.
The main topics to be studied are: Horseshoe braids,
Generalized pseudo-Anosov maps and piecewise linear models for
diffeomorphisms in dimension 2, Real and Complex Henon maps and
the Pruning Front Conjecture, Renormalization in dimension 2, and
some aspects of infinite-dimensional Teichmuller Theory.

Dynamical systems is the branch of mathematics that describes
systems that evolve in time. Typical examples are planetary
motion, population patterns, weather prediction or the economy.
Since Newton, it is believed that simple mathematical laws are
capable of describing the long term behavior of many of such
systems. The problem is that often such simple mathematical
laws lead to extremely complicated long time behavior.